Mathematical Sciences: Asymptotic Methods of Statistics

The research involves asymptotic problems in statistics, mostly in nonparametric inference. Observational studies will be analyzed using bandwidth-matching. The choice of smoothing parameters for estimating a conditional quantile function by kernel and nearest-neighbor methods will be studied. Change- point problems include developing a nonparametric control chart, estimating a two-phase linear regression and detecting a signal of constant intensity in part of a noisy field. In the area of Bayesian nonparametrics with Dirichlet priors, one of the goals is the development of a program package for approximating the posterior distribution in quantal response analysis by a Markov chain simulation technique. Research will also be conducted on the problems of inference in linear regression based on truncated and censored data.